Mathematical Sciences: Geometry of KAC-Moody Groups

This research is concerned with the geometric properties of decompositions of the flag variety induced by generalized Bruhat- Birkhoff type decompositions constructed using root data. The principal investigator will study the connections between certain generalized Kazhdan-Lusztig polynomials, the representation theory of the associated Kac-Moody Lie algebra and the geometry of these varieties. This research is in the general area of Lie algebras. The principal investigator is concerned with the Kazhdan-Lusztig polynomials which are combinatorially defined objects having deep connections with structures in geometry and representation theory. This work is important both in mathematics and physics.